The Search For The Origins of Life

BILL NYE THE SCIENCE GUY is a half-hour, weekly children's science education series produced in Seattle, Washington by McKenna/Gottlieb Producers Inc. and KCTS Television in association with Rabbit Ears Production. The series is designed to make science assessable and interesting to children in the of forth and fifth grades by relating science at the interests and everyday activities of children and presenting basic concepts from elementary science curricula in a humorous and exciting format. Programs are set in a variety of studio and field locations and utilize special effects and the creative techniques of host Bill Nye, a popular television entertainer and science aficionado. In each program, studio demonstrations/experiments and field segments feature Nye and a diverse cast of children, scientists and celebrity guests. Experiments and demonstrations use inexpensive, safe household items to enable viewers to follow along at home or in the classroom. As part of the promotion and outreach for the series, ancillary materials such as a teacher's guide, parent's guide, activity packages and newsletters will be developed and made available to schools as well as in the home and such informal setting as community centers, libraries, and clubs. ***